Academic Enhancement, Research and Training for Computer Science, Engineering and Mathematics Students

This project is: (1) Improving education for students in computer science, engineering and mathematics, (2) Increasing retention of students to degree completion, (3) Improving professional development, job placement and further higher education placement of participating students, and (4) Strengthening partnerships between institutions of higher education and related employment sectors. Students receive benefits from participating with ongoing academic enhancement and training activities which offer collaborative research activities and internships with various information technology associated firms. The project includes both undergraduate and graduate students.